GCR: Co-designing shaped light and quantum materials for optoelectronic switching and sensing

This project brings together materials science, optics, physics, computation, and device engineering to answer a central question: what new material behaviors and device functionalities become possible when light and matter are designed together rather than separately? The research will use carefully patterned light to interact with extremely thin materials, sometimes only a few atoms thick, whose electronic properties can be unusually responsive. The project will create a new co-design approach in which the light pattern, the material, the measurement method, and the final device are developed as one connected system. This could reveal material behaviors that ordinary light cannot access and make it possible to control electronic motion with much greater precision. The project leads to improvements in sensors for weak infrared and terahertz signals, new tools for studying quantum materials, open computational methods, and interdisciplinary training for students across materials and optical science and engineering. The project will also support outreach and educational activities for undergraduate and high school students, including students in the Greater New Haven area.

The team will develop a closed-loop research process: computer models will help design tiny optical structures that shape and concentrate light; materials theory will predict how selected two-dimensional materials should respond; advanced optical and electronic experiments will directly measure how electrons reorganize under these designed light fields; and device tests will show which effects can be used for sensing. This convergence-centered strategy links discovery and application from the start, allowing feedback between theory, fabrication, spectroscopy, and device performance. A key goal is to make light-driven material changes stable enough to study clearly and, eventually, useful enough to incorporate into compact detectors and switches. By jointly designing the optical structure and the material response, the project aims to establish general principles for controlling light-matter interaction and to translate those principles into sensitive infrared and terahertz technologies.